Experimental and Theoretical Studies of Shear-Thickening in Associating Polymer Solutions

9870128 Pine The objective of this research is to develop a fundamental understanding of shear thickening and flow-induced gelation in associating polymer solutions. A coordinated, three-pronged approach is proposed which involves the synthesis of new functionalized polymers, measurements of rheological and shear- induced structural changes, and theory. Highly monodisperse polymers, with well defined molecular weights, will be synthesized and will be quantitatively end-capped with functional groups designed to promote associations between polymers. The functional groups will be placed in one of four configurations: (1) at one end of each chain or (2) at both ends of the chains or (3) halfway along the backbone of the chains or (4) at both ends and halfway along the chain length. The degree of branching at the physical crosslinks will be controlled using metal ions with different coordination numbers. The degree of the association (or lifetime of associations) will be controlled by the addition of cosolvents which serve as "poisons" for the associating groups. In addition to extensive rheological measurements of shear and normal stresses, in situ direct measurements of the degree of association will be performed as a function of shear rate using uv/vis absorption spectroscopy. In situ measurements of flow-induced alignment of polymers will be performed using birefringence. Small and large angle light scattering measurements of the static structure factor S(q) as a function of shear rate will be used to follow flow-induced structural changes. The growth of the shear-induced gel under shear flow will be followed using the newly developed light scattering microscopy technique. The experimental work will be closely coordinated with an intensive program of theoretical research. Theoretical and experimental studies will commence with work on a model polymer solution in which each chain contains a single, terminally-attached sticker and progress towards more complex sticker placement as well as issues of network formation and gelation. %%% Associating polymer solutions find wide use in industrial applications as viscosity modifiers, anti-misting or anti- splatter agents, coagulants in coatings, and blocking agents in oil recovery. The utility of these systems stems from a number of important physical properties, including their ability to significantly enhance solution viscosity with the addition of very small amounts of polymer, their ability to control and even reverse the reduction of viscosity with temperature (this capability is important for many lubricants), their ability to suppress misting and splatter, and their ability to gel under certain conditions. The purpose of this research program is to develop an understanding of the molecular factors which determine the physical properties of these systems in order to engineer these systems for practical industrial applications. ***